All Nations Louis Stokes Alliance for Minority Participation Program

Project Summary
The goal of All Nations Louis Stokes Alliance for Minority Participation (ANLSAMP) program is that
of substantially increasing the number of American Indians and other under-represented minorities who
enroll in STEM disciplines at partner institutions and complete B.S. degrees in the STEM fields. In order to
achieve this goal, the ANLSAMP partner institutions have designed program components that will increase
the number of American Indians who will graduate with A.A. and B.S. degrees in these fields. ANLSAMP
is uniquely situated in that it works with most of the nations tribal colleges as well as a number of majority
colleges/universities. We have assembled these particular groups for two reasons. First, a greater number
of American Indians are pursuing higher education at tribal colleges. The participation of this group of
course, insures that NSF funding will impact the greatest number of Native American students. Second,
since many tribal colleges do not have STEM bachelors degree programs, it is important to have majority
institutions within our network to bridge our students from the associate degree level to the bachelor degree
and beyond.
ANLSAMP has developed the following list of five-year objectives to accomplish the goal presented
above:
Increase by 100%, the enrollment of American Indian students in STEM disciplines at
Associate degree-granting institutions.
To increase by 100%, the enrollment of American Indian students in STEM disciplines at
Bachelors of Science degree granting institutions.
To increase by 100%, the number of American Indians who received Bachelors degrees in
STEM disciplines.
To double the number of Bachelors Degree programs in STEM at tribal colleges, from 3 to 6.
To enroll 15% of the STEM bachelor degree recipients in graduate degree programs.
Thirty-six institutions of higher education have come together to form an Alliance with the
specific intent of influencing American Indian students as well as other under-represented minority students
to pursue and attain associate and bachelor degrees in one of the science, technology engineering and
mathematics (STEM) disciplines. The under-representation of American Indians in the STEM professions
has been highlighted and targeted as an action item at the national level over several decades. However,
the participation of American Indians in STEM careers has shown only marginal improvements over the
years, such that their current representation amount to less than 0.5% of the STEM workforce. This low
representation has the potential of failing to tap into the unique capabilities and talents of American
Indians.
ANLSAMP has carefully considered its project development in order to meet the intellectual merit
required of an LSAMP project. As a consequence of an evaluation of the levels of commitments and needs
and of the availability of resources, ANLSAMP has re-organized its partner institution into three tiers. This
tier structure will build capacity and facilitate the participation of all STEM faculty and students at partner
institutions while, at the same time, ensuring that program objectives are accomplished. The ANLSAMP
partner institutions will utilize a 4-R model to address the four most important areas for our students and
our program. They are: 1) Recruitment, 2) Retention, 3) Research and, 4) Reporting. Within each R, our
focus is that of continually providing opportunities to substantially increase the number of Native American
STEM students who enroll in and graduate from partner institutions.
Upon the successful implementation of program activities, the Alliance leadership expects to
observe a significant and sustained increase in STEM student enrollment at the partner institutions. The
increase in enrollment will accrue from the success of the recruitment initiatives within the high school and
two-year colleges. The enhancement of the academic activities for student participants, the culmination of
tutoring, mentoring and field and internship experiences are expected to stimulate and sustain students
interests with a concomitant increase in student retention rates. The activities presented in this proposal are
expected to generate an increase in the rate of student persistence and progression in pursuit of these
accomplishments.
The broader impact for this program reaches beyond American Indians in higher education. The
Alliance leadership expects that the support from the NSF, the non-federally funded internships and
scholarships along with in-kind contributions from the partner institutions will ultimately pay significant
dividends to the States in which partner institutions are located, to the nation and in particular, to American
Indian Communities.